Twist and route canalized polariton nano-light in MoO3 microstructures

The manipulation of light at small scales is important for delicate biomedical treatment, fast optical circuits, super-resolution microscopy and many others. For this purpose, recent efforts typically involve a type of nanoscale optical waves called polariton nano-light. Polariton nano-light travel in materials like water ripples propagating in a pool. They carry the energy of light and are affected by material properties. This project explores the manipulation of polariton nano-light in a new type of layered material: molybdenum trioxide. The research team plans to tune the wavefront geometry of polariton nano-light by stacking and twisting molybdenum trioxide in a LEGO-like fashion. The energy flow of polariton nano-light can also be routed by geometric structuring of molybdenum trioxide, for a variety of practical applications including biochemical sensing, nano-manufacturing and optical forces. In addition, this project provides the training opportunity for undergraduate and graduate students, especially the underrepresented minorities, on scanning probe nano-optical characterization, electromagnetic simulation and van der Waals material fabrication. The outreach and summer research activities provide K-12 students and high-school teachers hand-on research experience and teaching units for their curriculum.

The primary goal of the project is to explore the propagation routing and wavefront configuration of nanoscale light-matter waves – polariton nano-light – by van der Waals twisting and structuring of molybdenum trioxide. The routing and configuration rely on the electromagnetic directionality of polariton nano-light in molybdenum trioxide: they propagate along certain direction(s) with extremely anisotropic electromagnetic field. This electromagnetic directionality suggests the wavefront configuration via electromagnetic interactions of polariton nano-light in stacked vdW structures. The research team exploits state-of-the-art optical nano-imaging and electromagnetic simulation to reveal the configured polariton nano-light with straightforward real-space images. Furthermore, the research team plans to investigate exotic optical physics that are ungoverned by conventional optics laws, when additional geometric structuring is applied to the already directional nano-light. This project is expected to complement current knowledge in van der Waals materials and polaritonic nano-optics with the understanding of twisting configuration and exotic optical physics of directional polariton nano-light, and demonstrate the prototype van der Waals structures with tailored and reconfigurable properties for on-demand nano-optical functionalities. This project is jointly funded by the Electronic and Photonics Materials Program in the Division of Materials Research and the Established Program to Stimulate Competitive Research (EPSCoR).